MF and VHF Radar Studies of Atmospheric Dynamics at Urbana

The atmosphere below 100km altitude is in a state of continual motion, and the winds and waves in it can be measured by radar measurements of the scattering from small scale inhomogeneities it contains. To obtain echoes from below about 80km an operating frequency of about 40Mhz is used, while from the region 80-100km a frequency of 2-3Mhz is optimum. One of each type of radar is to be upgraded and put into operation at the Urbana field station of the University of Illinois. Scientific issues to be addressed include the statistical characteristics of stratospheric and mesospheric gravity waves, tropospheric frontal dynamics, and dynamics of narrow turbulent layers and momentum deposited in the mesosphere. Observations will be made in conjunction with the Flatland meteorological radar and the day/night sodium lidar systems in the immediate vicinity. The PI and his group at the University of Illinois are well known nationally and internationally for their output of high quality work, which has been up to the present mainly theoretical, but is now to be rounded out with an experimental effort.